Doctoral Dissertation Research in Sociology

This dissertation research addresses three basic questions: (1) What is the organizational structure of the broadcast media of Jamaica, and how is that structure penetrated by outside interest groups? (2) What are the characteristics of the individuals who conceive and produce broadcast messages, both inside and outside formal mass media organizations? (3) How much of the content of broadcasting is related to issues of national development, and what is the extent of foreign media penetration? Several methods will be employed. She will interview relevant communications and government employees, analyze demographic information on communications and government workers, and analyze the program content of Jamaica's two radio networks and one television network longitudinally.